Physical Phenomena in Thin Films and Layered Systems

9705182 Pokrovsky The PI of this grant is a senior distinguished theoretical physicist from the former Soviet Union with a series of honors (Lenin Prize) and a number of accomplishments to his credit. In this grant he is planning to work on a variety of problems in statistical mechanics of superconductivity and magnetism. There are three different projects: One project concerns with the PI's long standing interest, a general theory of topological phase transitions. A second project concerns the properties of high frequency plasma resonance in layered superconductors. Finally a third project is to study the role of steps and other defects in the magnetization of thin magnetic films. %%% The PI of this grant is a senior distinguished theoretical physicist from the former Soviet Union with a series of honors (Lenin Prize) and a number of accomplishments to his credit. He is planning a research program to study the role of defects and microstructures in the thermodynamic properties e.g. phase transitions and in the electromagnetic response. The work has applications in the general area of the properties of superconductors and magnets. ***